A Planning Visit to China: Cooperative Research Between Nanjing University and the University of Missouri

0309074
Sandovol

This is a planning proposal for Dr. Eric Sandvol, the University of Missouri, to visit Nanjing University to develop a collaborative project on tectonics and seismic structure of the Tien Shan Mountain belt. This is an important region in China for understanding seismic hazard determination. The proposed visit will allow Dr. Sandvol to lay the foundation for developing this US-China collaborative project.